International Workshop on High Performance Concrete, to be held November 21-23, 1994, Bangkok, Thailand

9403350 Zia The objective of the workshop is to provide an opportunity for leading researchers in this important and rapidly advancing technical field to assess the state-of-the-art of the technology in Europe, the Pacific Rim, and North America. Based on the assessment of the current status of the technology, the workshop participants will identify the research needs to further advance the technology and accelerate its acceptance into practice.